Interfering Optical Interactions (Physics)

Recently, experiments have been performed which demonstrate that interference between alternative excitation pathways in the laser excitation of atoms and molecules can be observed and controlled using non-linear conversion techniques. In order to obtain a better understanding of these phenomena, it is proposed to extend the work on measuring phase differences to (a) the effect of interfering processes on photo-electron angular distributions, (b) phase differences between the fundamental and third harmonic in third harmonic generations, (c) two-photon resonant cases and (d) control of relative production rates of excited states in atomic barium.